An On-Line Control Technique for a Hierarchically Structured Manufacturing Control System

The objective of this research is the development of a methodology for the repeated production of parts over the planning horizon of a shop. The primary focus is the regulation of parts flow among available resources utilizing real-time shop and cell controllers which enable automation of the process. The shop controller dispatches batches of work parts and schedules them among cells. The cell controller schedules a batch of parts among workstations. The fundamental analytical and design concepts underlying this approach are: resource grouping, real- time scheduling, hierarchical control, stability, and state-space representation of the system. The methodology includes a hierarchical decision/control structure consisting of shop and cell levels, dynamic grouping of a pool of resources (machines, robots, transporters) into virtual cells by the shop controller, the use of minimax algebra to permit state-space representation of repeated discrete events, and implementation based on linear control theory.